Mathematical Sciences: Multiple Recurrence Nonconventional Ergodic Averages Wiener-Wintner Return Times Theorems

Assani will investigate problems of multiple recurrence and nonconventional averages introduced by Furstenberg. He will study pointwise and norm convergence of these non-conventional averages. He will study the Wiener-Wintner versions of return times theorem which were used by Furstenberg in his proof of Szemeredi's theorem on arithmetic progressions. This project involves research in ergodic theory. Ergodic theory in general concerns understanding the average behavior of systems whose dynamics is too complicated or chaotic to be followed in microscopic detail. Under the heading "dynamics" can be placed the modern theory of how groups of abstract transformations act on smooth spaces. In this way ergodic theory makes contact with geometry in its quest to classify flows on homogeneous spaces.